GP-IN:Promoting and Sustaining geoscience and related disciplines with PSU EnvironMentors

In this project a focused geoscience component, designated GEOENV, will be added to the Penn State EnvironMentors program, which provides high school students a research experience throughout the academic year through group mentorship from faculty, postdocs, graduate, and undergraduate students. GEOENV will provide additional opportunities for STEM engagement for high school students, with the aim of steering students toward college/university Geoscience majors/disciplines and careers/jobs.

GEOENV will recruit 16 freshman, sophomore, and junior year high school students per year from 4 locations located in New Jersey, New York and Pennsylvania. Initiating recruitment prior to declaring majors or accepting enrollment at a university/college is a strategic time to introduce participants to geoscience content and related activities. High school student participants are assigned to a research team and develop a research project as part of the EnvironMentors program and focus on a geoscience discipline in the College of Earth and Mineral Sciences at Penn State University. From yearlong work on a research project, high school student participants present a research poster and papers as final products. GEOENV will also include seminars with cross-cutting themes during the academic year to increase exposure of participants to geoscience disciplines. High school teachers will also participate to deepen their knowledge of education of STEM education and research activities in geoscience disciplines.